Academic Connections in Engineering Scholarships

The project is awarding twenty two-year scholarships each year for three years for students enrolled in an engineering transfer program. The fourth year of the project is being used to finish out the last group of students in the program. A unique feature of the project engages students in a learning community that culminates in a service-learning project within a linear algebra class. The scholars are organized into eight to ten member "pods" to provide a linkage with the faculty mentors through counsel, friendship, and constructive example. The scholars are being provided with tutoring in the Center of Independent Study and are participating in extracurricular student activities and organizations such as an engineering club.

Faculty members, staff, and administrators working together in groups of about eight people called "Huey Teams" are developing and implementing action work plans to improve and focus on retention of the scholars. Underrepresented classes of students are being recruited through an outreach program to area high schools that have high concentrations of Hispanic and African-American students.